I-Corps: Math Snacks Marketplace

This project team is working to develop a learning product that uses games and animations to help students build a conceptual understanding of mathematics by engaging them in discussion, problem solving, and understanding vocabulary in context, moving beyond simple fluency in operations. The products, as well as the development model that created them, differ from existing digital learning products by offering teachers and students the opportunity to explore mathematics at a deeper level using the Common Core Math Practices. Additionally, these products are being developed in both English and Spanish and are designed to be an alternative to the typical current models of drills, practice games and "how-to" lectures.

The most immediate impact of the proposed activity would be to expand access and availability of the learning products to a larger audience through partnerships with both for profit and nonprofit groups. Through relationships with publishers, school districts, and online distributors, more students and teachers would be able to use product materials as a result of broader implementation, national exposure, and shared distribution through online portals. In expanding to a larger audience, this work has the potential to take proven strategies for all learners nationwide, encouraging even more underrepresented students to enter STEM careers or identify additional ways to support this critical group of learners.